A Conference on Organizational Learning at Carnegie-Mellon University, Pittsburgh, Pennsylvania: Spring l989

This award supports a research conference on the critical but ill understood process of how organizations learn and adapt and why some organizations are gripped by inertial seemingly unable to learn and change. Insights into organizational learning will influence theoretical developments about organizations in several disciplines concerned with the analysis of organizations. It will also have important implications for designing innovation and self renewal processes in organizations (in particular where fast learning is required for survival such as in the semi-conductor industry). The resulting volume of papers will be dedicated to honoring the contributions of James G. March to the field of organization theory and organizational decision making.